AMC-SS: Transition Pathways and Free Energy Calculations in Complex Systems

Ren
DMS-0806401

In this project, the investigator develops numerical methods
for the study of complex energy landscapes and barrier-crossing
events (rare events) as well as free energy calculations in
multiple-dimensional spaces. In the past few years, he and his
collaborators developed a theoretical framework and numerical
methods (the string method) for dealing with barrier-crossing
events in complex systems. In the first part of the project, he
applies the string method to problems arising from material
sciences. In particular, the dislocation motions and the energy
landscapes of silicon will be studied at the atomistic scale.
The minimum energy paths at low temperature and the minimum free
energy paths at finite temperature are investigated. In the
second part of the project, the investigator studies the problem
of mapping free energy landscapes in multiple-dimensional spaces.
For problems arising from theoretical chemistry and structural
biology, very often the interesting dynamics can be characterized
by a number of collective variables. For example, conformation
changes of bio-molecules are usually characterized by several
torsion angles or distances between different chemical groups.
The computation of the free energy associated with these
collective variables is of great practical interest.
Unfortunately such a calculation has been limited to situations
when there are only a few collective variables (typically no more
than 3), mainly due to the enormous number of grid points or bins
involved in the calculation based on a regular grid. In this
project, the investigator uses a sparse representation for the
free energy function based on sparse grids. This to a certain
extent overcomes the difficulty and allows the mapping of the
free energy landscape in spaces up to about 30 dimensions.

Many problems from structural biology, theoretical
chemistry, and material sciences can be abstractly formulated as
a system navigating over a complex energy landscape. The system
spends most of time in metastable states (the local minima of the
energy landscape), with thermally activated transitions from one
metastable state to another. The questions of interest are the
mechanism of such transition and the transition rates. These
transitions happen on a time scale specified by Arrhenius' law,
which is much longer than the intrinsic time scale of the
dynamical system. For example, the individual atoms in a
bio-molecule vibrate on the scale of femtoseconds (1e-15 s); in
contrast, conformation changes of the molecule (which is the
interesting event) typically happen on the scale of milliseconds
(1e-3 s -- a trillion times longer than a femtosecond) or even
longer. The disparity in the time scale makes traditional
approaches (e.g. the direct simulation of molecular dynamics or
Langevin dynamics) prohibitively expensive. In this project, the
investigator develops efficient numerical tools (the string
method) for the study of such transition events and the
associated energetics. The numerical method is applied to
investigate the dislocation motions in crystalline solids at the
atomistic scale. The mapping of free energy landscapes of
biological systems in multiple dimensions using sparse
representations is studied as well.